Development of Freezing Nucleation Apparatus

9871049 Vali Fundamental understanding of the characteristics of freezing nuclei is an important problem for the atmospheric and other sciences. The atmospheric science community recognizes that the origins of ice in clouds is one of the major uncertainties in the understanding of cloud processes. Those processes in turn are the most critical source of uncertainties in global models of the general circulation and the water cycle. In the biological arena, ice nucleation has been found to have widespread importance. Bacterial and fungal ice nuclei have been identified and it has been shown that ice nucleation measurements can provide more effective ways than microbiological tests for the identification of bacterial contaminants in food. Ice nuclei are being used in spray ice technology (including artificial snow making). Prevention of frost damage to agricultural plants is possible via control of ice nucleating bacteria on plants, and insect pest survival may be controlled similarly. The new freezing nuclei apparatus that the Principal Investigator will develop has the potential to significantly enhance research activity in these areas, since the unavailability of simple and reliable measurement methods has been frequently cited by researchers as a serious problem. This apparatus will provide a significant improvement over the commonly used drop freezing method of determining the activity of freezing nuclei in water. The principal advances provided by the new instrument will be the preservation of sample integrity and a high degree of reliability. Sample integrity will be achieved by placing sub-samples in individual sealed vials. In this manner each sub-sample can be preserved through any desired sequence of freezing or other tests without any serious limitation on duration. This same step also assures that there is no possibility of spurious spread of ice into the sample which was a major limitation of earlier devices. Successful develo pment of this instrument is expected to lead to new research on freezing nucleation, in relation to atmospheric and biological ice formation including better measurements of the effects of solutes, inhibitors, and activators; the stability of nuclei; compositional analyses; the analyses of cloud and precipitation samples; and the connection between biogenic and atmospheric ice nuclei. Most of these topics have been addressed in previous experiments but only statistical results could be obtained, and some results remained in doubt because of shortcomings of earlier instruments. ***